Collaborative Research: Unsteady Multiphase Dynamics of Droplet Impact and Fragmentation on Rotating Airfoils: Experiments and High-Fidelity Simulations

This project will investigate what happens when raindrops strike rapidly spinning aircraft propellers. Small, unmanned aircraft are increasingly used for tasks such as environmental monitoring, infrastructure inspection, agriculture, disaster response, and public safety. However, their performance can be significantly degraded during rainfall because water droplets impact the propeller blades, spread into thin liquid films, break apart, and alter the forces generated by the rotating blades. Despite the importance of this problem, the underlying physics remain poorly understood. By improving understanding of how raindrops interact with rotating propellers, this research will help improve the reliability and safety of unmanned aircraft operating in adverse weather. The project will also provide interdisciplinary training for undergraduate and graduate students, create educational materials for engineering courses, and engage K–12 students and teachers through summer camps, laboratory demonstrations, and outreach activities at the University of South Carolina and Iowa State University.

The goal of this collaborative research is to develop a predictive framework for droplet impact and fragmentation on rotating aerodynamic surfaces. The project will combine advanced experiments and high-fidelity simulations to examine how surface curvature, rotation, and impact location influence droplet spreading, splashing, and breakup. Experiments will use high-speed imaging and flow diagnostics to measure droplet deformation, liquid-sheet formation, and secondary droplet production on rotating airfoil and propeller models. Simulations will resolve the coupled motion of air, liquid, and solid surfaces to reveal instability mechanisms that cannot be measured directly. The research will identify the key physical parameters governing droplet impact outcomes, establish validated maps of impact regimes, and generate benchmark datasets for future modeling efforts. The resulting knowledge will advance fundamental understanding of multiphase flows involving rotation and provide guidance for the design of aircraft propellers, turbomachinery, wind-energy systems, and other technologies operating in wet environments.